Representation of Leads and Polynyas in Global Ocean General Circulation Models (GCM's)

This project aims to improve simulations in ocean general circulation models and, ultimately, coupled atmosphere-ocean general circulation models by better representing high-latitude processes associated with oceanic convection and sea ice in the Southern Ocean. There are three major objectives: (a) to enhance the resolution of the sea-ice component model in an ocean general circulation model, (b) to improve boundary layer coupling with the overlying atmosphere, and (c) to investigate the impact of a new plume convection scheme on variability. Key elements in the formation of Antarctic shelf waters leading to Antarctic Bottom Water (leads and polynyas) are particularly highlighted.

This project builds on previous work by examining additional processes and using more sophisticated model physics. The project will contribute towards the education of two Ph.D. students and promote collaboration between the Texas A&M Research Foundation and other research institutions. The results are expected to lead to an improved understanding of the global ocean and would have some impact on future climate change predictions, and will be published in refereed scientific journals and presented at appropriate conferences.